Presidential Young Investigators Awards

The importance of high performance computing to contemporary issues in science and engineering has been well documented. It is the goal of this Presidential Young Investigator to develop efficient algorithms for large scale computing, in particular, multigrid methods capable of solving three dimensional, nonlinear structural mechanics problems. Some of these problems include stability of complex structures with both material and geometric nonlinearities. These computational tools will allow the engineers to better understand the influence by such phenomena as mode interaction and imperfection sensitivity on bucking of structures. Special effort will be made to implement these algorithms on both coarse-grain (CRAY, Alliant) and fine-grain (CM, HperCube) Systems.